Distribution And Ecology Of Ammonia Oxidizing Bacteria In The Palmer LTER Study Area

This project will investigate the distribution, phylogenetic affinities and ecological aspects of ammonium-oxidizing bacteria in the Palmer Long-Term Ecological Research study area. Ammonia oxidation is the first step in the conversion of regenerated nitrogen to dinitrogen gas via denitrification, a 3-step pathway mediated by three distinct guilds of bacteria. As such, ammonia oxidation is important to the global nitrogen cycle. Ammonia oxidation and the overall process of nitrification-denitrification have received little attention in polar oceans where it is significant and where the effects of climate change on biogeochemical rates are likely to be pronounced. The goals of the studies proposed here are A) to obtain more conclusive information concerning composition of Antarctic ammonia oxidizers; B) to begin characterizing their ecophysiology and ecology; and C) to obtain cultures of the organism for more detailed studies. Water column and sea ice AOB assemblages will be characterized phylogenetically and the different kinds of AOB in various samples will be quantified. Nitrification rates will be measured across the LTER study area in water column, sea ice and sediment samples. Grazing rates on AOB will be determined and their sensitivity to UV light evaluated. In addition, the significance of urea nitrogen as a source of reduced nitrogen to AOB will be assessed and the temperature response of nitrification over temperature ranges appropriate to polar regions will be evaluated. This work will provide insights into the ecology of AOB and the knowledge needed to model how water column nitrification will respond to changes in the polar ecosystems accompanying global climate change.